Research Experiences for Undergraduates in Chemistry at the University of North Dakota (REU Site)

9322231 Kulevsky University of North Dakota Dr. Norman I. Kulevsky and other members of the Chemistry Department of the University of North Dakota are being supported for a Research Experiences for Undergraduates (REU) site. This site is being jointly funded by the Chemistry Division and the EPSCoR Program. For the period 1994-6, ten undergraduate students will spend eight weeks each summer actively engaged in a variety of projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic and physical.